REG: Yag Laser and Signal Processor

The Departments of Civil Engineering, Mechanical Engineering and Physics at the University of Vermont will purchase a YAG laser and an 8-channel signal processor module which will be used to support research in engineering. The equipment will be used for several research projects including, in particular: smart structures, mechanical instrumentation, laser-based ultrasonics, and vibrations.